Feeding patterns and bone response in the jaw: Models for understanding primate morphology

The shape of an animal's skeleton is related to aspects of its behavior and diet, and this relationship allows scientists to extract clues about the biology and ecology of extinct species based on their fossilized bones. However, the complexities of such form-function relationships are not fully understood. This project will model a wide range of feeding patterns like those found in wild primates to better understand the relationship among feeding, mechanical food properties, and jaw form. The findings will inform adaptive scenarios about skeletal biology and evolution, including in primates and our own human lineage. This study will foster interdisciplinary approaches to research and education and involve members of under-represented groups in STEM fields. It will benefit a postdoctoral fellow, graduate students and undergraduates as well as local STEM teachers and students, all of whom will participate in lab apprenticeships, scientific presentations and outreach to the public and local institutions. Another benefit to society includes development of a novel training environment for the next generation of academic researchers and educators. Advancing knowledge about how the skeleton responds external loading patterns is also critical for hard-tissue growth and maintenance after surgical intervention, and for developing therapies to counter osteoporotic bone loss.

The ecomorphological importance of variation in diet-related loading patterns is a key issue in primate biology and evolution. Although jaw proportions are commonly used to infer feeding ecology, the interspecific link between diet and phenotypic diversity is variable, which poses a problem for accurate fossil reconstructions. This project will quantify the long-term effects of variation in the modality of daily feeding patterns on jaw growth and function in a naturalistic mammalian model of dietary loading with important similarities to primates. The investigators will assess if a saturation response is resident at more than one level of skeletal architecture and how such variation underlies skeletal performance. The "saturation response" occurs when bone cells become desensitized during protracted loading, which in turn inhibits hard-tissue formation despite the continued presence of routine mechanical stimuli. Temporal variation in daily patterns of feeding activity is likely to represent an ecological factor that induces the saturation response in the oral cavity. As locomotor activity is in part dictated by patterns of feeding modality, this study may also identify the ecological correlates of osteogenic stimuli and anatomical covariation throughout the skeleton.